Precision Adaptive Optics Imaging with Spatially Filtered Aperture Masking Interferometry

This project addresses the problems of precise calibration of Adaptive Optics observations by use of an entirely novel application of aperture masking interferometry. The use of a non-redundant pupil mask reduces the problem of information extraction in the field of Adaptive Optics and enables a higher precision calibration of the point spread function structure delivered by the Adaptive Optics system up to the highest angular resolutions. The project will improve the Adaptive Optics Non-Redundant Masking experiment by implementing spatial filtering, which has previously demonstrated dramatic improvements in precision in long baseline interferometry. Improving the understanding of Adaptive Optics performance is very important and timely as a very large fraction of present and future ground based astronomy depends on extracting results from Adaptive Optics data.